Analysis of Digital Seismic Data from the Sumatran Fault

This research is to continue analysis of seismic data from a digital network that has been operating around the Sumatran fault in northern Sumatra (near Lake Toba) since November, 1990. These data offer the first detailed look at the Sumatran fault. The study will use the arrival time data, waveforms, earthquake locations, and fault plane solutions to answer questions about earthquake distribution and focal mechanisms in relation to the geological structures in the region. This work is being done in cooperation with the Indonesian Meteorological and Geophysical Agency (Jakarta) who operate the seismographic networks in Indonesia. This research is a component of the National Earthquake Hazard Reduction Program.